Leadership Support for Activities of the Board on Science Education

The Board on Science Education (BOSE) of the NRC is a standing committee of the National Academies. This proposal requests core support for BOSE so that it can continue to provide national leadership in science education. Specifically, BOSE (1) improves the knowledge base for science education; (2) identifies critical issues in science education policy and practice; (3) translates research and disseminates evidence-based information; and (4) builds an interdisciplinary community of scholars to bring knowledge to bear on important issues in science education.

To carry out its mandate, BOSE conducts studies, sponsors workshop and works with government representatives to surface emerging policy issues. The Board has identified the following priorities for the next few years:
• Intersection on research on learning and science education
• Cyber-enabled learning and teaching
• Analysis of the Education System to enable implementation and scale-up
• Reaching diverse populations
• Intersection of science and science education

The core support enables two two-day Board meetings each year, coordination with DBASSE and other units of the Academy, and regular meetings between NSF and the Academies.